Testing Embedded Systems and Software

Computer Engineering (32)
We are adapting testing quidelines and techniques from a variety of federal and industrial sources and implementing a course in testing embedded systems and software. We are working with partners from DoD, NASA, and industry to focus on those techniques commonly used in industrial environments. Students learn both the theoretical and practical aspects of testing embedded systems through case studies obtained from these partners and laboratory experiments.